Kansas City Research Data Center

This award will establish a new Census Research Data Center in Kansas City. The center will be used by faculty from the University of Kansas City Lawrence and the University of Missouri Kansas City, as well as by researchers from the Federal Reserve Bank of Kansas City, the Ewing Marion Kauffman with a satellite center on the campus of the University of Missouri Columbia. The center will allow these researchers to use government data records for cutting edge research in economics, sociology, management, demography, health, and related disciplines. The center allows researchers access to the data while fully maintaining the privacy and confidentiality of the data records. The center will join an existing network of 18 Census Research Data Centers located round the country. Since these other centers are primarily on the East and West coasts, the center will be an important addition to the research capacity of Kansas and Missouri.

This RDC will be used for projects on a wide range of topics. There is a significant community of researchers in this part of the US who focus the scientific study of entrepreneurship. Several of the researchers who will make immediate use of the new center will use the restricted-access Census microdata to test innovative new hypotheses about the effects of entrepreneurship and small business on the US economy.